Industry/University Cooperative Research Center for AdvancedAir Conditioning and Refrigeration Technology

Air Conditioning is regarded as a necessity by modern society. The development of more efficient Chlorofluorocarbon (CFC) refrigerant free air conditioners is an extremely important goal for the air conditioning industry. This proposal proposes the creation of a university industrial cooperative research center to contribute to the technology base for a new generation of equipment which will reduce and ultimately eliminate reliance on CFCs and to provide an opportunity for manufacturers to coordinate research and share results, increasing competitiveness on an international scale. The Industry/University Cooperative Research Center for Advanced Air Conditioning and Refrigeration Technology will perform research on air conditioning and heating components including heat exchanges, compressors and alternative components and will also address system problems associated with mobile Air Conditioning Systems, Domestic Refrigeration Freezers and General Heatpump and Refrigeration Systems. This project has been coordinated with Dr. William Grosshandler, Program Director for Thermal Systems Engineering in CTS Division. The Program Manager recommends that the University of Illinois at Urbana be awarded $95,000 for the first year of a five year continuing grant. $50,000 is to be provided by NSF and $40,000 by the U.S. EPA via an Interagency Agreement. In addition this award provides $5,000 for a woman, undergraduate research assistant for one year under the NSF Women, Minority, and Disabled Engineering Research Assistants Program. The student will augment the research of the Center by studying and analyzing domestic refrigerator-freezers to determine the impact of new refrigerants on system performance. Near the end of each twelve month period, the Program Manager and/or the Directors of the Engineering Centers Division reviews the progress of the center on a number of renewal criteria, including the following: (1) extent to which the University/Industry interaction and collaboration is developing; (2) extent to which the support base for the center is expanding; (3) extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommend support of the next period of this continuing grant.